Reconstructing global ice volume and bottom water temperature in the 41-kyr world - a novel integrated data and machine-learning approach

Three million years ago, Earth entered an “icehouse” phase with extensive continental ice sheets in both hemispheres. Variations in Earth’s orbital tilt on 41-thousand-year cycles controlled the relative warmth of the planet. It remains a mystery how these small changes in Earth’s orbital geometry had such big impact on Earth’s temperature. This study will help solve that mystery by reconstructing ocean temperature and ice volume from one to three million years ago. The project will use compounds produced by phytoplankton and the chemical composition of microscopic fossil organisms. Machine learning algorithms will synthesize this data. The results will reveal how ice sheets respond to temperature changes. The project will support interdisciplinary training for graduate and undergraduate students in Earth sciences and applied mathematics. The PIs will work with professional educators to develop and implement a summer research program for high school students on paleoceanography and machine learning.

The mode of ice volume variability transitioned approximately one million years ago from quasi-symmetric 41-kiloyear cycles to asymmetric 100-kiloyear oscillations with no change in external forcing (the Mid-Pleistocene Transition). Previous work on Pleistocene evolution of ice-sheet dynamics and feedbacks have assumed that the global benthic foraminifera oxygen isotopic composition reflects ice volume changes, although the proxy is affected by both ice volume and bottom water temperature. This project will disentangle the contributions of these two factors and use a novel statistical approach to develop a new estimate of Early-Pleistocene ice volume. Specifically, the project will generate high resolution UK’37-based sea surface temperatures paired with the oxygen isotopic composition of planktonic foraminifera at multiple marine sites. This combination will allow calculation of the oxygen isotopic composition of seawater, which is a proxy for global ice volume. A machine-learning framework will be implemented for statistically robust estimation of ice volume. The multi-fidelity Gaussian process model and space state modeling with a Kalman filter will address the complexity of multi-core, multi-proxy time series in calculating ice volume, bottom water temperature, and associated uncertainties. This approach differs from previous studies in that it requires no knowledge of sea level changes or the oxygen isotope composition of benthic foraminifera and makes no implicit assumption of the relationship between seawater and benthic foraminifera oxygen isotopes and bottom water temperature.